Geoscience Graduate Research Grants

The Geological Society of America s (GSA) Graduate Research Grants Program (Program) has become one of the largest and most prestigious funding programs for graduate students in the geosciences. The program helps fund field and laboratory costs of geoscience projects proposed and conducted by masters and doctoral students. NSF funds cover approximately 30% of the Program s total costs. GSA will contribute to the Program s administration costs, so all NSF funding will go directly to students. GSA is also committed to seeking additional funding from non-NSF sources to allow the Program to expand in the future. The program promotes graduate education of under represented groups by supporting geoscience research by women and minority students.